Expedited Award for Novel Research: New Devices Utilizing High Temperature Superconducting Materials

This is a special opportunity effort aimed at exploring the superconductive electronic device potential of recently-discovered high transition temperature superconducting materials with transition temperatures approaching at least 40 K. The program includes a study of film preparation and processing procedures, electrical characterization of the devices, and comparison with currently-available superconductive devices.